The Panel Study of Income Dynamics -- Waves 25 - 29

The Panel Study of Income Dynamics (PSID) collects information annually from a representative national sample of some 7,000 families, about 20,000 individuals, and processes it for dissemination to a broad segment of the social science community. A national sample of 2,000 Latino households was added in the 1990 interviewing year, although the costs of planned ongoing annual interviews with this sample are not part of this project. This grant will extend the PSID for five additional years, covering interviewing waves 25 (1992) through 29 (1996). The additional waves of data will add substantial value to the data set's research potential. The added waves will vastly increase the amount and quality of intergenerational data for the numerous parent-child and sibling pairs in adult ages; facilitate refinements in business-cycle studies; improve analyses of rare life events and long-term effects of life events by providing more than a quarter century of life-cycle information on workers and families; expand the issues that spells analysis can address; make possible international comparisons with similar income- dynamics panel studies that have been launched in a number of European countries; ensure that social scientists will continue to be able to monitor the effects of changing economic and social conditions and policies; and enhance the research potential of recent additions to the study by extending their measurement period. Five more years of data will also permit the PSID to become a data resource for research on economics and global change. Information will be gathered that will permit better estimates of the likely behavioral adjustments to the changing conditions occasioned by global environmental change. The behaviors of interest include geographic mobility, energy consumption and inter-sector labor mobility. The new data linked to data collected in the past will also permit better analysis of the likely distribution consequences of global changes -- who wins and loses -- in terms of income, employment and health.